Diffusional Phase Transformations in Small Systems

9902110
Johnson

Diffusional phase transformations and solid-state reactions in stressed, multicomponent, multiphase systems are under investigation using theoretical, computational and experimental techniques. At least one spatial dimension of the materials system is small. Initial efforts are directed towards understanding the effects of system size, interfacial stress, and non-local compositional stress on microstructural evolution by focussing on phase decomposition in binary and ternary (Ag-Au-Cu) alloys in small systems of spherical and planar geometry. These results provide a foundation to investigate the effect of a diffusion barrier on the microstructural evolution of solid-state reactions. There are three main thrust areas: (1) development of a set of thermodynamic field equations and boundary conditions for describing microstructural evolution in small systems with reactive interfaces; (2) application of the field equations and boundary conditions to simulate microstructural evolution in small systems; and (3) experimental investigation of microstructural evolution in small particles (10 - 1000 nm in diameter) of ternary Ag-au-Cu alloys using analytical transmission electron microscopy.
%%%
The long-term viability of many technologically important systems depends on the microstructural stability of the materials comprising the system. A common feature in the design of thin-film and electronic devices, composite materials, and nano-structural materials is the use of spatially contiguous phases of ever-decreasing, small spatial dimensions that are not in thermodynamic equilibrium. There exists in these systems a strong thermodynamic driving force for interdiffusion and nucleation and growth of new phases at the interface between component materials. These reactions can be significantly modified by the placement of a diffusion barrier between the reacting materials.
***